Aspirations, Social Obligations and Psychological Stress

SES-1024342
Kristen Marcussen
Richard Serpe
Kent State University

This research will help to clarify the relationship between social roles and psychological distress. The study extends identity-discrepancy theory, which differentially predicts depression and anxiety as a result of discrepancies between how individuals believe they are viewed by others (self-relevant perceptions), how they desire to be in a given identity (aspirations) and how they feel they should be with respect to a given identity (obligations). The investigators hypothesize that discrepancies between self-relevant perceptions and aspirations will be associated with depression, whereas discrepancies between self-relevant perceptions and obligations will be associated with anxiety. Using a nationally representative sample of 1000 adults, this research refines and tests measures of identity that better differentiate aspirations and obligations attached to identities, examines the relationship between aspirations, obligations and well-being within the context of five distinct identities, and broadens the scope of identity-discrepancy theory by examining the extent to which self-esteem influences the relationship between identity discrepancies and psychological well-being.

Broader Impacts

This research has the potential to help scholars better understand the causes and consequences of stress on mental health outcomes. The results may help increase our knowledge of how mental health problems result from the successful or unsuccessful enactment of social roles in everyday life. In doing so, the findings will broaden our theoretical understanding of the relationship between stress and psychological well-being, and may also have implications for clinical research and practice in mental health populations. Finally, the study will provide opportunities for mentoring undergraduate and graduate students. Students will be involved in each phase of the project, gaining valuable research experience.